AF: Small: RUI: Network design and facility location problems

In some combinatorial optimization problems, the resulting solution
may violate some constraints provided the cost of finding the solution
is significantly reduced. Such problems are called soft constraints
problems. In hard constraints problems, an acceptable solution cannot
violate any of the constraints. Hard constraints versions of many
problems have resisted satisfactory solutions as compared to the
corresponding problems with soft constraints. The goal of
this project is to study combinatorial optimization problems with hard
capacity constraints.

The PIs will be focusing on hard capacity versions of network design
and facility location problems. These problems have applications in
networking and resource allocation and are among the central problems
in combinatorial optimization. As it has happened often in the past,
the PIs believe that techniques developed for solving these problems
will have broader impact in solving other combinatorial problems.

Training and fostering undergraduate as well as high school students
is a major emphasis of the broader impact of the proposed project.
The PIs' prior work with undergraduates have led to very good career
opportunities for many of them. The PIs will continue working with
students at Rutgers-Camden, fostering their raw talent and helping
them discover their own potential. The PIs will also continue working
with high school students, giving them exposure to theoretical
computer science and working on research with some of them.